Non-Commensal Interactions of Epiphytic Bacteria with Plants

ABSTRACT 96-15280 Lindow Non-commensal interactions of epiphytic bacteria with plants. The surfaces of healthy plants support large populations of bacteria thought to exist in a completely commmensalistic relationship with plants. These microbes are believed to passively utilize the nutrients that leak from the plant as carbon and energy sources. This study aims to provide proof that the effect of bacteria on the leaf surface is not neutral-that microbial activities modify the microenvironment in ways that increase the nutrient resources available for microbial growth. Many epiphytic bacteria produce the plant growth regulator indole 3-acetic acid (IAA) which alters the availability of nutrients, presumably by altering the pattern of nutrient exudation from plants, and thus challenges the dogma that epiphytes exist in a truly commensalistic relationship with plants. The approach will utilize molecular genetics techniques, looking for communicating signals in both directions (to the bacteria and to the plant).